Formation of Self-Assembling Ceramic Matrix Composites

9510272 Brown The primary goals of this project are to establish the generic principles which allow organic-inorganic composites having controlled microstructures to be designed and to establish mechanistic paths governing self-assembly of composites formed by reaction in aqueous solutions. Three technical objectives will be pursued: (1) to concentrate on establishing the relationships between the chemistry of the inorganic matrix phase, the kinetics of its formation, and the attendant microstructural development; (2) to explore the use of polymers having specific polymer conformations and functional groups and thereby to investigate the interaction between these polymers and the matrix phases; and (3) establish effects of the polymeric structures and the hydrolysis of the matrix phase precursors on the formation of polymer crosslinks. The investigation of adsorption phenomenon and interaction with surfaces having spatially and compositional controlled functional groups will also be explored. %%% This research project is important to the design and development of chemical routes to form composites. It emulates the attributes of biological composite materials associated with their formation at net shape, low temperature and pressure. ***